Investigation of Soil Liquefaction in the 1999 Chi-Chi, Taiwan, Earthquake

CMS0085143
Project title: "Investigation of Soil Liquefcation in the 1999 Chi-Chi, Taiwan, Earthquake"
PI: C. H. Juang
Institution: Clemson University

This research project is aimed at improving the geotechnical engineer's ability to assess liquefaction potential using in-situ tests. The project seeks to acquire, document, and disseminate field liquefacation data from the 1999 Chi-Chi, Taiwan, earthquake. The significance of this project lies in the fact that the data collected from the Chi-Chi earthquake will greatly expand the existing databases, particularly for high values of cyclic stress ratio and silty and gravelly sands. The collected data will be made available at no cost to other parties on the World Wide Web upon completion of the project. The web page created for this project will be updated periodically to include additional new data and the results of the subsequent analysis.